Equipment Grant for Laboratory Enhancement and Mobil Recruitment Laboratory

This effort will enhance the recruitment and retention activities on the part of Tennessee State University for minority and female engineering students by increased recruitment in rural communities and easing the transition from high school to college. This effort will entail the purchasing and outfitting of an "Engineering Laboratory on Wheel" and the enhancement of four existing engineering laboratories that are now being utilized by pre-college participants and engineering freshmen.